Mathematical Sciences: Geometry of Configurations, Polygons and Polyhedra

9300657 Grunbaum The research involves investigations in the fundamental geometry of convex polytopes, configuations and combinatorial aspects of symmetries. Applications are proposed to tiling patterns is a variety of contexts including architectural design and stereoscopic viewing. Another component of the proposal entails an undergradaute education activity in aspects of geometrical structure. The investigator also proposes further development of instructional material in several areas of geometry suitable for students at the high school and junior college level. Activities in participation with teachers at these levels is also envisaged.